MRI: Acquisition of a High-Performance Computing Cluster for Astrophysics

This work is for the acquisition of a high-performance computer cluster for computational astrophysics and for the analysis of data from the Sloan Digital Sky Survey, Wilkinson Microwave Anisotropy Probe, the Atacama Cosmology Telescope, and the Southern Cosmology Survey. The cluster will be available to researchers from several institutions and will be available for the training of students in high-performance computing.